Topics in Stochastic Analysis

The PI's will investigate several problems in stochastic analysis
of pure and applied nature. Competing particle systems appear in
various scientific models including biology and theory of
combustion. The PI's will study various aspects of such models,
including hydrodynamic limits, tagged particle behavior and
properties of the associated partial differential equations. Long
term behavior of reflected Brownian motions driven by the same
noise will be examined. Geometric properties of Neumann
eigenfunctions will be investigated. Uniqueness of solutions to
some stochastic differential equations will be proved. Boundary
behavior of harmonic functions and local and global behavior of
heat kernel associated with jump processes will be examined.
Brownian motion on a fractal set will be investigated. Inverse
problem is a mathematical model arising naturally in applied
sciences from geophysics to medicine and physics. The PI's will
study the foundational questions related to this model, such as
existence and uniqueness of the solutions to the corresponding
equations. Other models and processes will be the subject of
separate but related studies; they include Markov processes
conditioned on a small time scale, a change of variable formula
for processes with 4-th order scaling properties and non-local
operators of variable order.

Brownian motion and Markov processes are models for a wide range
of natural phenomena, such as weather and climate, various
functions of living organisms and financial markets. One of the
scientific goals is to make accurate predictions based on
available data. Mathematical methods have to be developed to make
such predictions possible and reliable. The PI's will work on both
theoretical questions leading to general results and on specific
models that can serve as testbeds for the general methods. The
results of theoretical research are often used to make
quantitative predictions in well undrstood models and to make
qualitative predictions related to complex systems. The research
of PI's will be mostly focused on processes that display no or
little long time memory. Such systems are popular models for
inanimate matter and man-made systems, but also for many
biological systems.